Control Abstraction in Logic Programming

The depth-first control behavior of most logic programming languages, such as Prolog, is powerful but inflexible. The language Conlog has been developed to investigate the use of first-class continuations to express a wide variety of control behavior in the context of logic programming. Conlog extends Prolog with extra-logical operators that allow alternate control behavior to be expressed, while retaining a default depth-first behavior. The low-level operators, which allow programmers to directly manipulate first-class continuations, may be used to implement high-level operators that abstract breadth-first search and multitasking. Research includes an implementation of Conlog, based on earlier work on logic state-spaces, and a denotational semantics of the low-level operators. In future work, operators for heuristic-based search and alternate approaches to synchronous and asynchronous multitasking will be investigated, a semantics expressive of "phases" of goal satisfaction will be developed, and current implementation techniques for efficient support of first-class continuations.